Postdoctoral Fellowship: MSPRF: Measure Classification in Partially Hyperbolic Systems

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Rosemary Elliott Smith is “Measure Classification in Partially Hyperbolic Systems”. The host institution for the fellowship is Rice University and the sponsoring scientist is David Fisher.